Environmental Reporting Unit and Science Friday

National Public Radio is seeking to expand its coverage of scientific issues in two ways: through the creation of a new Environmental Reporting Unit, and through the introduction of SCIENCE FRIDAY, a two hour call-in talk show dedicated to scientific issues. Each of these projects will be supported by an extensive outreach effort targeted at local schools, community groups, science museums, and nature centers. Through the Environmental Reporting Unit, NPR plans to produce eight to ten half hour documentary reports per year on critical environmental issues. Each of these reports will be available to listeners on cassette and will be accompanied by supporting documentation. The SCIENCE FRIDAY team will engage NPR's audience in a lively debate on questions ranging from nuclear physics to archaeology. In addition, SCIENCE FRIDAY will travel to high schools and museums across the country and engage in question and answer sessions with students, teachers, parents and school administrators. These "on the road" segments will be supplemented by live broadcasts from annual meetings of the National Association for Science (NAS) and the American Association for the Advancement of Science (AAAS). Through these efforts, NPR will be able to draw listener attention to the need for improved science and mathematics education, while helping listeners make informed evaluations of current public policy in these areas.